Planning for the "Mind and Learning" Exhibit Area -- A Planning Grant

This 12-month planning phase will prepare the Exploratorium to develop a major collection of exhibits and activities on human thought and behavior. Because of the abundance of dramatic, new scientific research in human cognition and how this topic can be explored in an informal setting by the public, the institution will perform a one-year research and planning project.

The team will investigate work by other science centers through site visits, conduct audience research on their needs in learning about cognitive science, consult with advisors, develop and test exhibit prototypes and evaluate the process.